Next Steps in Education Research, Practice, and Progress: Strategic Planning at the National Academies

0002231
FEUER

This award will continue the leadership of the Center for Science, Mathematics and Engineering Education in the synthesis and application of research to educational improvement by outlining a series of strategic planning exercises.

Beginning with the establishment of a strategic planning advisory group, the Center will conduct a series of activities that include: dialog with various experts; "roadmapping" exercises designed to bring greater coherence to the National Academy's work in education; and development of a coherent vision and revised mission statement for guiding future work. These activities will conclude in a "white paper" that will convey the overall vision of the Center.

The recent decision to integrate the Board on Testing and Assessment (BOTA), the Board on International Comparative Studies in Education (BICSE), and the Center creates a unique opportunity for leadership. Financial support is necessary to enable the Center to articulate a research and action plan and to build the appropriate infrastructure to carry out this strategic plan.